Conference on "Issues Raised in the Brundtland Report from an Ecological Perspective," Oslo, Norway; 1990

In April, 1987, the United Nations Environment Program issued a report that was published under the title of "Our Common Future". This report, known as the Brundtland Report in honor of the committee's chairman, calls for a new world economic order, designed around the concept of sustainable development. In a project sponsored by the International Association for Ecology, Dr. Golley and Stenseth propose to conduct a workshop on the environmental implications of the Brundtland report. The workshop will deal with three areas: 1) management of the environment as a commons, 2) the environmental consequences of further human population growth, and 3) the interaction between ecology and economics. The conference will be held in a facility in Norway and will be partially supported by the Norwegian National Science Foundation. The International Association for Ecology has actively pursued the international collaboration of scientists for the benefit of mankind. This workshop will provide an unusual opportunity for scientists concerned about the environment to provide input to global decision making at a decisive moment.